CAREER: A Program of Research and Education for Inverse Problems in Imaging

In step with each technological breakthrough, increasingly more of what we
learn about the world is measured indirectly. Extending and complementing
our sensory faculties, we rely on technology to probe across long distances
and through natural barriers. Astronomy, nondestructive testing, medical
imaging, and geophysical prospecting are all important examples of our
ability to make indirect measurements of a physical effect and from these
learn about the causes of such effects. At the heart of this ability are
inverse methods: practical computational techniques for processing the
measured data and distilling the information of interest from the data.
These techniques bring together tools from multidimensional signal
processing, statistics, and applied mathematics.

The purpose of this CAREER grant proposal is the development of a long term
research and educational program in multidimensional signal processing that
will integrate engineering, statistical, and numerical techniques for the
solution of inverse problems in imaging. The educational component of the
proposed program will design, from the ground level, a comprehensive
graduate and undergraduate curriculum in statistical signal and image
processing at the newly established department of Electrical Engineering at
the University of California, Santa Cruz. In addition, an introductory
undergraduate seminar course, and an in-depth graduate course on the
subject of in- verse problems in imaging will be developed. The research
component of the proposed program will address problems in image
reconstruction from indirectly measured information that may be in-
complete and noisy. These data can convey information that, depending upon
the application, may be geometric in nature (2-D silhouettes of a 3-D
object), tomographic (projections of a function), local (blurred and
downsampled images of a detailed scene), or global (moments of an object.)
Our program of research will entail the development of statistical and
numerical methods for solving problems in each of the said categories.